International Conference on Computational Harmonic Analysis and Applications

The International Conference on Computational Harmonic Analysis is
held in conjunction with the 19th Shanks Lecture Series, featuring
Steve Smale as the Shanks speaker. This conference plays a crucial
role in impacting developments of science and technology based on
computational harmonic analysis, identifying new trends, and
providing an important common link to other scientific and
engineering disciplines at large. The emphasis of the conference is
on the state-of-the-art developments on such topics as learning
theory, computational mathematics, and applications to signal/image
processing, information technology, and life sciences. It is intended
to highlight computational mathematics and its connections with
interdisciplinary research areas, and brings researchers and graduate
students together for in-depth discussions on all aspects of
computational harmonic analysis.

The field of computational harmonic analysis is a recently
established and still fast growing area of mathematical analysis. It
has been providing common links and tools to other areas of
mathematical sciences, natural and life sciences, and engineering.
New developments with a very broad spectrum of applications, such as
wavelets, frames, radial basis functions, spline functions, curve and
surface subdivisions, sampling, and learning theory, have found their
mathematical home in computational harmonic analysis. This forum for
interdisciplinary research is expected to continue for the
foreseeable future.